RIA: Noncolocated Vibration Control of Flexible Mechanical Systems by the Time Delay Approach

This research is in the area of control of structural vibrations. Flexible mechanical systems are widely used in spacecraft, buildings and bridges, material processing devices, and elsewhere. Vibration of such systems limits their utility in many applications. This project addresses this topic and focuses on the modeling, analysis, and experimental evaluation of noncolocated vibration control of flexible mechanical systems. It utilizes the time delay approach to eliminate structural instabilities. The research comprises four phases, including (1) formulation of a noncolocated control system in the frequency domain, (2) development of the time delay approach for noncolocated control, (3) analysis of the noncolocated control system and design of stabilizing controllers, and (4) experimental verification of the control system model and time delay approach. This is a multidisciplinary problem requiring expertise in dynamics, structural analysis, and control system design.